SGER: A Study of Freshwater Fluxes and Ablation of Arctic Summer Sea Ice Employing Active and Passive Hydrological Tracer Techniques

ABSTRACT OPP-9872626 EICKEN, HAJO UNIVERSITY OF ALASKA The project will quantify the lateral and vertical meltwater movement and associated freshwater and heat fluxes in summer sea ice through the use of novel hydrological tracers. The fate of sea ice in the Arctic Ocean is a very important issue due to its effects on global and regional climate and economics. The investigator will use stable isotopes and fluorescent dyes to make a significant advance in the understanding of the driving forces responsible for melting sea ice. As such, the research will enable improvements in sea ice models that will allow better prediction of melting in response to global warming. The project will be conducted at the Surface Heat Budget of the Arctic (SHEBA) Ocean site in the Beaufort Sea where other studies underway will enhance the results of this project by providing validation of the techniques employed.